Algorithms and Implementations for OFDM Based Wireless LAN

Wireless local area networks (WLANs) have the advantages of inexpensive network reconfiguration
and user mobility over wired local area networks. However, WLANs are so far limited to niche applications due to their low data rate and data rate uncertainty. There is a tremendous user demand for WLANs with higher data rates and international availability. This research addresses the challenges of meeting the user demand. This research combines theoretical algorithm development with real-time implementation in hardware. It fosters multidisciplinary research and development among researchers at the University
of Florida and the local industry as well as the technology transfer to the local industry.

The main objective of the research is the development and application of efficient and robust parameter estimation and symbol detection algorithms and their real time implementations for high data rate WLANs. The investigators devise and evaluate efficient and robust parameter estimation and symbol detection algorithms for Orthogonal Frequency Division Multiplexing (OFDM) based WLANs with one or more transmit
and receive antennas for both stationary and rapidly time-varying channels. The most effective algorithms are implemented efficiently in hardware in real time. The investigators study the tradeoffs of effectiveness, simplicity, computational complexity, and practical hardware implementation in real time.